Dissertation Research: Positional Behavior in Relation to Ecology, and Skeletal Morphology of Pitheciin Primates

This project will investigate positional behaviors (posture and locomotion) among a group of poorly known platyrrhine primates, the tribe Pitheciini. Similarities and differences in positional behaviors will be considered, especially in relation to ecological variables such as the location of food resources. Two unique aspects of this study are that representatives of all three taxa (Pithecia, Chiropotes, and Cacajao) will be observed in their natural habitats and that seasonal differences will be investigated. A third important aspect of the study is the correlation of these positional behaviors with selected morphological parameters in the postcranium. The data generated in this study will provide the basis on which to interpret the fossil evidence of the ancestors of these species, to reconstruct the evolutionary history of this group of primates, and to draw inferences on the adaptive pressures which may have selected for their morphological features. Principles drawn from this study may then be important in the interpretation of the morphology of other primate groups.